Discovery Corps Postdoctoral Fellowship: Bringing Authentic Science to the Undergraduate Lab Experience

Anne Bentley is integrating research and undergraduate education with this Discovery Corps Postdoctoral Fellowship. Her research component will involve designing and fabricating bio-photoelectrochemical cells for solar hydrogen production. An undergraduate lab module exploring solar energy conversion will be incorporated in introductory chemistry labs. Bentley will partner with the Center for Authentic Science Practice in Education (CASPiE), an NSF-funded Undergraduate Research Center, to train graduate student teaching assistants in peer-led team learning and research-based laboratory methods.

This award is cofunded by the Division of Chemistry and the Office of Multidisciplinary Activities. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.